CC*DNI Networking Infrastructure: Montana State University's Bridger-A Science-Driven Networking Cyberinfrastructure

Dedicated research networks form the crucial foundations for data-intensive science. These networks help researchers share data, create knowledge, and communicate scientific discoveries. This project from Montana State University deploys a dedicated research network in the form of a science demilitarized zone (DMZ) network across the Bozeman campus. The enhancements include: a new 40Gb/s core; 10 Gb/s connections to data-intensive scientific instruments; and 1Gb/s connections to individual big data labs and workstations.

Bridger creates a dedicated "data lane" for scientific research, allowing more efficient and effective data sharing to the national community for NSF-funded science drivers at Montana State. This network supports prior investments made by NSF in a major research instrument, a statewide EPSCOR environmental network, and projects in biology, chemistry, and physics. The project's broader impact is focused on the reuse of created data in data science curricula and formal existing NSF-funded outreach programs, including Montana Girls STEM Collaborative and the Nanoscale Informal Science Education Network. The Bridger project demonstrates an easily replicated solution that other state universities may copy to address the profound impact that data-intensive science is having on campus networks.